What's the Use of Plant Colors?

This proposal is based on the PI's active research investigating the physical, chemical, spectroscopic and biological properties of boronic acid substituted chalcones, a subclass of flavonoid plant pigments. Functions of flavonoids include disease resistance, sunscreen protection, plant pigmentation and fertility. This project targets youth in Berrien County, Michigan providing them with hands-on activities involving natural plant pigments and their function. It also provides teachers with supplementary materials to Michigan's core science curriculum and informs the general public about the importance of research in developing a robust R&D sector in Berrien County's mixed economy. Outreach tools include the websites, DVDs, PowerPoint, poster presentations and the Benton Spirit Community Newspaper.